CAREER: An Integrated Research and Education Program in Physics of Heavy Hadrons

The PI proposes to study properties of B-mesons with the aim of extracting
fundamental parameters from precision data obtained at B-factories and other
accelerators. He will perform detailed calculations of B-Bbar mixing and
develop factorization theorems for the two-body decays of B-mesons into a
charmonium state plus a light meson. In this way he plans to separate the
effects of strong interaction matrix elements from those of fundamental
parameters such as CKM matrix elements.

In the broader aspects of the proposal, the PI plans an active program of
outreach to African-American students and other under-represented groups in
Detroit schools. In particular he will establish a network of computers in
the schools which will be used to train students during the school day and
to perform particle physics calculations at other times. He will also be involved in the local REU and RET programs and develop courses on the “History of the Universe” to instruct high school teachers and students about particle physics and astrophysics and cosmology.